Integrated Physical and Chemical Observations of Water-rock Interactions and Coupled Matrix-conduit Flow in the Karstic Floridan Aquifer

0510054
Martin

Intellectual Merit. It has been recognized recently that the flow field of karst
aquifers includes conduits, fractures, and intergranular porosity of the matrix and that full
characterization of flow requires understanding flow in each component, coupling
between the components, and how water recharges to the aquifer from the surface. Most
well-studied karst aquifers have low intergranular porosity where diffuse flow is confined
to a network of fine fractures surrounding conduits. In contrast, this proposed work
centers on the Floridan aquifer, which retains high (up to ~20%) intergranular matrix
porosity. Previous work on physical hydrogeology (discharge measurements,
temperature tracing of flow rates, observations of hydraulic head), suggests that water
exchanged between conduits and the matrix of the Floridan aquifer is controlled by
reversals in head gradients between the matrix and conduits as a result of high allogenic
input into the conduit system. The previous work has not quantified contributions from
diffuse recharge from the surface, the magnitude of exchange between the conduits and
matrix, the residence time of water that exchanges, or chemical modifications of the
aquifer through dissolution reactions. Consequently, this proposed project will determine
coupling between aquifer components and water sources by integrating new chemical
measurements with previously used physical observational techniques.
The field area will be the Santa Fe Sink/Rise system in north-central Florida.
Observations to be made will include major element and isotope compositions of water
from nested new and existing wells and lysimeters (soil water samplers) for ground water
characterization, from the River Sink, Rise, and karst windows for characterization of
conduit water, and from precipitation for characterization of the input sources. The
chemical measurements will provide flow velocities to be compared with head gradients
between the conduits and the matrix and saturation states with respect to carbonate and
silicate minerals. The nested wells and data on chemical composition of precipitation
will allow characterization of vertical differences in water chemistry to determine
magnitudes of diffuse recharge from the surface. These data will be compared to other
karst aquifers with low intergranular porosity using available deterministic models such
as chemograph separation. Comparisons will also be made to results of previous and ongoing
studies of other regions of the Floridan aquifer. Because of the higher
transmissivity of the highly porous Floridan aquifer, it is anticipated that the intergranular
porosity component will play a large role in the overall flow field of the aquifer.
Broader Impacts. This work should improve the understanding and
management of karst aquifers that have significant portions of their flow within matrix
porosity. These aquifers commonly represent major water resources, but have previously
been managed using conceptual models that consider either flow primarily through
conduits or treat the system as an equivalent porous medium. In particular, these results
will be directly applicable to management of the Floridan aquifer and results will be
disseminated to critical water managers through Martin's participation in the Florida
Springs Task Force. Human resources will be impacted through graduate and
undergraduate education, both formally as a resource for currently taught courses and
through graduate student theses. One second-year PhD student is currently working on
this topic as part of his dissertation, and two masters students and several undergraduates
will participate in the field, laboratory, and analytical work.